Engineering Research Equipment Grant: Laser-Doppler Anemometer

A laser-doppler anemometer (LDA) will be used for measuring the instantaneous point velocities in swirling turbulent jets, with two specific heat transfer applications currently in mind: gas turbine can-type combustors, and active cooling of electronic circuit boards. Swirling and recirculating flow fields, which characterize these applications, are particularly susceptible to alteration by intrusive probes, making non-intrusive optical measurements almost a requirement. Results of the present study will be useful to design engineers, who, at present, have little data upon which to optimize the heat transfer between the fluid and the walls of gas turbine combustors and circuit boards.